CAREER: Toward eliminating malicious code

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Malicious software is one of the most pressing security problems on
the Internet. The main reason for the apparent failure of current
defense approaches is that malware detection techniques are too
specific. This is most obvious with virus scanners, which rely on
signatures that are specific to individual malware instances. However,
also behavioral detection techniques typically target only specific
features of malicious code. Examples include the scanning behavior of
worms and the command and control channels of bots. Unfortunately,
such techniques become obsolete when malware evolves and the targeted
feature disappears.

In this project, we develop a novel malware defense system that
overcomes the shortcomings of current approaches. To this end, we
investigate techniques that specify and model program behavior at a
level of abstraction that captures general properties and features
that are fundamental to the execution of programs. In addition, we
develop a stealth and comprehensive analysis environment that
automatically extracts the characteristics of novel malware strains
when they appear, expressing these characteristics in terms of the
general, behavioral properties. These characteristics are then
automatically translated into efficient detection models. This allows
our system to quickly react to and eliminate novel malware variants.

The research on novel techniques to eliminate malware presents rich
opportunities for industrial and societal impact, and will have broad
impact though education and outreach. We will introduce a new course
on malware analysis at UC Santa Barbara, perform outreach activities
through a newly established diversity center, and cooperate with
well-known players in the anti-malware industry.